Sustained Load Capacity of FRP Reinforcement

9402170 Dolan, Charles W. This project is a three year study to evaluate the sustained load capacity of available fiber reinforced plastics (FRP) tendons for application as reinforcement is reinforced and prestressed concrete structures. The proposal addresses the following major areas: - The creep-rupture characteristics of FRP reinforcement. - The long term characteristics of FRP reinforcement. - Compare the creep-rupture behavior of FRP reinforcement in air and in concrete structure. - The strain reserve of FRP reinforcement at the end of 30 months of extended environmental exposure in a concrete - structure. ***